Engineering Equipment Grant: Combined Vibrating Sample/Torque Magnetometer

This grant will be used to purchase a combination vibrating sample and torque magnetometer to be used in several research projects. The general theme is materials for magneto-optical data storage.